Extended Environmental Monitoring via Intelligent, Autonomous Airships

Environmental scientists who develop policies for the effective management of human activity are
often thwarted by a lack of accurate information about the state of the environment. In some
cases, the correct policy is not clear because the relationship between human activity and the
environment is not well understood. Additional environmental data could improve such under-standing
and provide the means to develop effective policies. In other cases effective policies
have been proposed but additional data is required to justify the political and economic costs of
implementation. However, more data by itself is not the solution. The human resources neces-sary
to parse and analyze the data are scarcer than available data. What is necessary is intelli-gence
to actively sample in such a way as to maximize the useful content in the data.
The proposed inter-disciplinary program will investigate means of extended-term environmental
monitoring. Specifically, this project seeks to endow a solar-powered airship with the intelligence
to conduct extended-duration, autonomous environmental sampling. We will explore issues of
configuration and design, path planning and control in the presence of weather patterns, and
algorithms necessary for intelligent environmental monitoring. The intended result is an instru-mented
platform for efficiently gathering accurately tagged environmental data that can stay aloft
indefinitely.
Airships are well suited for environmental monitoring tasks, however their potential in this capac-ity
remains unfulfilled. As aerial monitoring platforms, they exhibit numerous advantages over
fixed wing aircraft and helicopters. They are safer, more stable, and less expensive. They con-sume
less power and are capable of extended operation. Given the intelligence to operate auton-omously
and the proper sensing hardware, an airship provides a sensing platform that would be
an asset to a diverse range of environmental scientists who seek to understand, remediate, and
manage the environment. Potential applications of this technology include forest and crop man-agement,
wetland surveys, land use assessment, monitoring of hazardous waste sites, and ero-sion
quantification.
Through a cost-sharing provision with Carnegie Mellon University, we will demonstrate our
results on a prototype, instrumented airship to generate a characterization of air pollution. Work-ing
together with a recently funded EPA Supersite in Pittsburgh, this project will employ an airship
to generate 3-D profiles of air pollution and ambient particulate matter. The resulting data set will
provide new insights into the vertical distribution and transport mechanisms of air pollution.
New technologies cannot turn back the ecological clock but they can help environmental scien-tists
push back the frontiers of knowledge and help ordinary citizens grasp the urgency of pre-serving
our natural world. It is now possible to use previously classified images from spy
satellites that show the extent of environmental degradation at a macro scale. This proposal will
create a means of gathering dense environmental data at a much finer resolution, in a more effi-cient
manner.